Coherent Optical Manipulation and Spectroscopy of Semiconductor Quantum Dots Spins at the Single Dot Level

The project focuses on providing an understanding of the interaction between a
microscopic system (the electron spins) and a macroscopic system (the dot
environment, control or measurement) using quantum theory. Concepts such as
stochasticity arise out of the evolution of the combined system, as demonstrated by measured results of control and by experimental observation of decoherence and its reduction by active optical control. The research is at the frontier of applied quantum physics. It involves collaborators in the physics of semiconductor nanostructures, in high-precision coherent optical control and spectroscopy of quantum dots, and in many-body theory and light-matter interaction.